2007 Fall Workshop on Computational Geometry

The 2007 Fall Workshop in Computational Geometry is being held at the IBM T.J. Watson Research Center in Hawthorne, New York. The workshop is jointly organized by Richard Pollack and Janos Pach of the Courant Institute of NYU, and Jonathan Lenchner of IBM and Polytechnic University, Brooklyn. The aim of the workshop is to bring together researchers from academia and industry, to stimulate collaboration on problems of common interest arising in geometric computing. Holding the workshop at IBM is intended to infuse the field of computational geometry with a set of fresh problems, and problem areas, coming from contemporary industrial applications. Following the tradition of the previous workshops on Computational Geometry, the format of the workshop is informal, extending over two days, with several breaks scheduled for discussions. There are invited speakers and an open problem session to promote a free exchange of questions and research challenges.